High-Level Local Control Strategies for the Coordination of Large Groups of Mobile Autonomous Agents

Intellectual Merit: Remarkable advances have been made in recent years in the development of small,
agile, relatively inexpensive mobile autonomous vehicles and sensors, ultimately intended for a wide variety of
purposes such as search and rescue, exploration, environmental monitoring, distributed sensing, the cleaning
and maintaining of structures, etc. The existence of such devices and the anticipated development of still more
advanced versions raises compelling questions: Can large numbers of small autonomous vehicles/sensors be
successfully deployed in the form of a swarm or flock as a search team, an exploration group, or something
similar, to cooperatively carry out a prescribed task and to respond as a group to high-level management
commands? Can such a group reliably function with a centralized supervisor, with limited communication
between members, with limited power capabilities and/or with the roles of its members not all the same and
perhaps changing with time. In broad terms these are the issues which motivate this proposed research.
In particular we propose two pronged assault on the issue of coordinating large groups of mobile autonomous
agents/mobile sensors. First, our intention is to continue the work we are already doing with NSF
support, on the applications of graph rigidity to the maintaining of vehicle formations and to the localization
of sensors in a large, possible mobile network. Second we propose to continue studying prototype synchronization
and formation forming problems such as flocking and rendezvous, which we considered in prior
work, with the objective of uncovering new principles of cooperative control and new means to analyze such
systems. In the former category, we plan to take a hard look at how one might modify the rigidity concept
so as to make in applicable to leader-follower formations. We will also look carefully at just what is required
global rigidity wise, to enable one to determine the position of a single sensor in a non-rigid network. We
will address all aspects of the distance constrained sensor network localization problem, in an e.ort to devise
a provably correct distributed localization algorithm, for a moderately general class of networks.
We will explore synchronization problems and group pattern forming problems using simple high level
point models. Our aim here is not so much to solve the problems we will pose as it is to rely on them to
suggest interesting questions about cooperative control, which are potentially applicable to more realistic
models in more realistic settings. We will look at rate of convergence issues. We will attempt to generalize
and formalize the concept of analytic synchronization with the goal of creating a means of analyzing a large
class of asynchronous multi-agent motion control problems. We will be particularly interest in the structure
of the switched dynamical systems which result due to the changing of neighbors in a mobile network of
vehicles. What we want to know is if there are inherent structural properties we can exploit {as we did in the
.ocking problem} to obtain convergence results, so as to avoid the NP hardness associated with convergence
questions with typical switched dynamical systems.
Broader Impacts: This project will advance discovery and understanding while promoting teaching, training
and learning in at least two di.erent ways. First, graduate students involved in the project will be
expected to attend and present there results at technical meetings. Second, project graduate students will
contribute to and participate in a short course on the topic which we envision organizing and giving towards
the end of the project. We cannot think of any especially unusual way in which this project might broaden
participation of under represented groups, although we certainly would encourage such participation. This
project will enhance infrastructure for research and education in at least two ways. First we expect to
continue our cross-disciplinary collaboration with our environmental biologist colleagues with whom we've
already been working for several years. Second, we expect to continue to collaborate with our experimentalist
colleagues at Yale and UCSB who are building a mobile sensor network test beds for trying out various
control algorithms. We hope to continue to contribute to broadening dissemination to enhance scienti.c
and technological understanding by organizing and running boni .de interdisciplinary technical gatherings
like the Block Island Workshop on Cooperative Control we co-organized and which took take place in June,
2003. We also expect to give overview talks on the subject such as the plenary presentation we gave last
July at the MTNS meeting in Belgium, and the Penner Lecture we gave last November to the engineering
faculty at UCSD.